Propoal to Establish an Industry/University Cooperative Research Center for Advanced Studies in Novel Surfactant

EEC-9804618 P.I.: Somasundaran Columbia University ABSTRACT Surfactants are used in every major industry of modern society. The aim of this Industry/University Cooperative Research Center for Advanced Studies on Novel Surfactants (IUCS) at the Columbia University is to develop a knowledge base on the relationship between the structures of different surfactants and their performance in various manufacturing systems, products and devices. Modification of classical surfactants with specific functional groups so that their surface, micellar, membrane, and adsorption activities are enhanced or controlled will be one of the approaches in the development of novel surfactants.